Syzygies and Geometry

The PI will pursue research in areas of algebraic geometry,
commutative algebra, combinatorics, and their computational aspects,
with emphasis on syzygies and their relevance to geometry. The PI will
study (1) Syzygies of Lawrence toric ideals and their relation to
chromatic numbers of graphs, (2) Syzygies, the rank variety and the
complexity of Orlik-Solomon algebras, (3) Syzygies of symmetric
sheaves, and corresponding obstruction classes in derived Witt groups
to the existence of symmetric locally free resolutions of such
sheaves, (4) Natural compactifications of configurations of
points in projective space and their applications to enumerative
problems.

Algebraic geometry is one of the oldest parts of modern mathematics, but
one which has had a revolutionary flowering in the past quarter-century.
The main thrust is towards discovering connections
between the geometry of sets defined by the vanishing of
polynomials and the algebraic invariants derived from the defining
equations of these sets, for instance syzygies. Results in algebraic
geometry and combinatorics have also found uses in communications,
security and robotics.